Submersible Investigation of Temperate Glacimarine Sedimentation, S.E. Alaska

This proposal seeks support for a three-year investigation of sedimentation processes at grounding lines of tidewater glaciers, and at a deltaic system, in SE Alaska. The study is designed around an unmanned cruise-submersible to collect data that is extremely difficult to obtain using any other means. This will be the first attempt to directly observe and quantify processes at a modern grounding-line with such vigor. A group of four researchers will study retreating, slowly advancing, and rapidly advancing tidewater fronts, as well as older grounding-line deposits. The submersible will also be used to evaluate submarine mass movement processes and the settling of particles from suspension which produce laminate deposits. The field program will emphasize collection of data provided by side-scan sonar, seismic reflection profiling, video tapes, stereo still photography, CTD surveys, current meter measurements, and samples of suspended and bottom sediment. Most data will be recorded in a manner that will allow an evaluation of the field procedures, and modify them if necessary. The study will provide critical data for modelling the processes and depositional systems of glacial grounding lines. The results will contribute to current models of quasi-stability and advance of marine glaciers. The data will increase the reliability of sedimentological models for interpreting stratigraphic successions, and for predicting sediment budgets in different glacimarine depocenters. An evaluation of the ability of sediment gravity flow channels to be eroded in different glacimarine basinal systems will be made. Lastly, the research will test a new hypothesis on how laminitis can be produced. The process is thought to be applicable to both glacial and non-glacial marine environments.